Information Technology Research (ITR): Sensitive Information in a Wired World

Increasing use of computers and networks in business, government,
recreation, and almost all aspects of daily life has led to a
proliferation of sensitive data (i.e., data that, if used improperly,
can harm data subjects or other relevant parties), and concern about
the ownership, control, privacy, and accuracy of these data has become
a top priority. Despite significant technical accomplishments
in relevant research fields (e.g., cryptology and security, database
systems, and data mining), there is no comprehensive, end-to-end
technological infrastructure for handling sensitive data over
the entire course of their lifetime, nor is there even widespread social
agreement about the rights and responsibilities of major stakeholders
in our data-intensive, networked world.

This project is a multi-institutional, multi-disciplinary, multi-modal
project that looks comprehensively at sensitive data in a networked
world. There are two main academic centers of activity (Yale and
Stanford), three smaller-scale academic participants (Stevens
Institute of Technology, NYU, and the University of New Mexico), and
substantial participation by non-academic partners, including
technology companies, (IBM, HP, and Microsoft), representatives of
user communities (Citigroup, NIH, Yale Center for Medical Informatics,
the Census Bureau, and the Secret Service), and DC-based policy
organizations (The Center for Democracy and Technology and The
Electronic Privacy Information Center).

A major technical theme of the project is privacy-preserving data
mining, and, more generally, techniques for meeting the potentially
conflicting goals of respecting individual rights and allowing law
enforcement and other legitimate organizations to collect and mine
massive data sets. Other technical agenda items include (1)
accessibility and reliability of distributed data (2) operating on
encrypted databases, (3) remote control of data, (4) repelling hostile
data, and (5) auditability of data-management systems. Because these
technical goals are affected by lack of agreement about the meanings
of basic terms, most notably "privacy," a major goal of the project is
the development of a conceptual framework for the study of rights,
responsibilities, and public policies focused on sensitive-data
handling. This part of the project incorporates the notion of
"contextual integrity," which considers both the context and the
content of data sets in assessing sensitivity.

Projected outcomes of the project include a next generation of
technology for handling sensitive information that is qualitatively
better than the current generation's and an effective conceptual
framework for policy making and philosophical inquiry into the rights
and responsibilities of data subjects, data owners, and data users.